NeTS:Small:A Unified Lookup Framework to Enable the Rapid Deployment of New Protocols in High-Speed Routers

High-end routers and switches perform performance-critical lookups
into large data based on network packet content. Current designs rely
on specialized hardware modules for high performance. While mostly
sufficient, emerging new protocols create a problem; for these to be
deployed, expensive equipment upgrades are required. To support the rapid deployment of new data plane protocols, we need a flexible hardware/software framework.

This project is developing such a unified framework for future
network devices with four components: a) an abstract execution model
to represent hardware, b) a toolchain to ease implementation, d)
quantitative performance evaluation of protocols, and d) programmable
hardware architectures specialized for the core operations in network
protocols. Leveraging trends in tiled architectures, the project is
developing a specialized tiled architecture that moves computation close
to storage and thus provide efficient lookups. The project is also
investigating how these design methodologies extend beyond protocol
processing to payload inspection as required by intrusion prevention,
application identification and other functionality.

Deploying and implementing new protocols is challenging. This project
will result in specification of flexible hardware for high-end
routers. This flexibility to support multiple protocols using a single
toolchain and architecture framework will reduce development costs of
future high-end routers and speedup the deployment of new
protocols. Another outcome will be the open-source release to
the academic community of the toolchain for developing high-speed
implementation of protocols, reference implementations of various
protocols, standard data sets, and a NetFPGA implementation of the
proposed hardware architecture.